SBIR Phase I: Large-Scale Production of Monodisperse Single-Walled Carbon Nanotubes

This Small Business Innovation Research project is to demonstrate large scale capability for sorting single walled carbon nanotubes by diameter and electronic type. Sorting of carbon nanotubes can lead to improved performance in existing applications as well as opening up new applications that require monodisperse properties.

The broader impacts of this research if successful will enable the delivery of purified carbon nanotubes on scales necessary for volume applications. A means for producing large quantities of SWCNTs that are monodisperse in their diameter and/or electronic type would enable companies in the electronics, optics, materials, and healthcare industries to explore fundamentally new avenues for commercial product development using carbon nanotubes. SWCNTs can potentially be incorporated into a wide range of commercial devices, such as transparent conductive films for displays and solar panels, interconnects in integrated circuits, high-performance field-effect transistors, thin-film transistors, memory devices, near-infrared emitters and detectors, and biosensors.